The impact of physical heterogeneity and connectivity on LNAPL entrapment and dissolution

0408895
Silliman

This work examines the transport behavior of LNAPLs in the region bounding the
water table. Defined as the Partially Saturated Fringe, or PSF (Berkowitz et al., 2003),
the region bounding the water table includes the classic Capillary Fringe (CF) and the
region below the water table in which multiple phases (air, water, and/or LNAPL) are
present. This work builds on prior work within our laboratory on Air Entry Barriers (e.g.,
Silliman et al., 2002; Dunn and Silliman, 2003; Dunn et al., 2003) as well as the
substantial literature on LNAPL behavior (e.g., Nambi and Powers, 2000; Illangasekare
et al., 1995a,b; Schroth et al., 1998; Walser et al., 1999; Van Dijke and Van Der Zee,
1997). Of particular interest for the present study is the interaction of the structure of
heterogeneity and the distribution / dissolution of LNAPLs under conditions of a
fluctuating water table. The work is based on a combination of two-dimensional
laboratory and numerical experiments on the distribution of pure- and dissolved-phase
LNAPL in a two-zone porous medium (coarse sand and fine sand). Within the
laboratory, visual and TDR techniques will be used to monitor LNAPL saturation. Mass
of dissolved-phase LNAPL constituents will be monitored at the outflow from the porous
media. Numerical experiments will be performed on simulated random and scaled
porous media and T2VOC, an extension of TOUGH2 [Transport Of Unsaturated
Groundwater and Heat, version II], developed at Lawrence Berkeley National
Laboratory. These experiments will be based on generating a series of realizations of
random distributions of the coarse and fine sands (based on both stationary random
permeability distributions and structured permeability distributions), followed by
simulation of a fluctuating water table with significant LNAPL phase above the original
water table. The laboratory experiments will be utilized to verify LNAPL behavior as
predicted by the numerical model, as well as to provide visualization of LNAPL
behavior. The numerical model will be utilized to address the central hypotheses:
The degree of connectivity (defined within the proposal) of coarse sand lenses
within a fine sand matrix will influence the amount of LNAPL entrapped within
the PSF. Specifically, as the connectivity of the coarse regions increases (with the
same relative volume of coarse and fine sands), the volume of entrapped LNAPL
will decrease.
An increase in the degree of connectivity of coarse sand lenses within a fine sand
matrix will result in a reduced overall rate of dissolution of LNAPL entrapped
within the PSF.
In terms of intellectual merit, this work advances the understanding of controls of
LNAPL distribution and dissolution in the PSF. From a theoretical standpoint, this
provides greater insight into the impact of physical structure on transport characteristics
near the water table. From an applied standpoint, extension of this work holds promise
for innovative means of remediation of LNAPL contaminated systems.
In terms of broader impact, this work will provide training for one Ph.D. and one
Masters student, as well as contributing to undergraduate and graduate courses in
groundwater hydrology and remediation. In addition, this work will aid in further
development of research collaborations with colleagues in western Africa (Benin).